Industry/University Cooperative Research Center for the Management of Information

ABSTRACT NUNAMAKER EEC-9725079 The use of collaborative computing to support meetings and teams can result in higher productivity and more efficient use of available time in any organization. An Industry/ University Cooperative Research (I/UCRC) for the Management of Information is being established at the University of Arizona to perform research in this area. Seven memberships have been obtained for a total of $350,000. The initial research agenda of the Center will address 1.) Development of Collaborative Tools and Methodology to Enhance Business Process Re-engineering, 2.) Software Development Process for Group Support, 3.) Group Tools and Methods for Effective System Requirement Specifications and 4.) Processes and Tools for Group Writing.